Design Optimization of Composite Panels

9622433 Zabinsky This award supports research on the design of composite structures. The research will address the problem of optimizing the structural design of a composite panel to minimize cost while including manufacturing considerations. Specifically, the research will integrate finite-element methods with new state-of-the-art global optimization algorithms. If successful, this research will lead to a design tool for anisotropic composites that will enable designers to optimize structures encountered in many industries. The research may have significant impact on the aerospace industry (e.g., design of a composite wing or fuselage), the naval industry (e.g., design of composite deckhouses or bulkheads) and/or the automobile industry (e.g., design of composite engine hoods or body panels). Providing engineers with the capability to optimally design cost-effective composite structures will increase the competitiveness of US-based industries.